CISE Research Resources: Instrumentation for Multidimensional Imaging and Applications

0130839
Patrick Flynn
University of Notre Dame

CISE Research Resources: Instrumentation for Multidimensional Imaging and Applications

The award contributes to the purchase of (a) specialized sensors and actuators (range scanners, digital video facilities, 3D fabrication equipment), (b) high-performance computing equipment (a Beowulf cluster and high-performance workstations), and (c) infrastructure (including a network-attached disk array and networking hardware). The proposed equipment will support current and planned research in image processing and understanding. Research in planning and currently underway that will employ the facility includes image and video processing (range image compression techniques, image compression artifact mitigation, and high-resolution video from sensor fusion), image analysis and solid modeling (image segmentation, skeletonization, object representation, and applications in orthopedics and gait analysis), and empirical evaluation of image understanding algorithms (performance of low-level and high-level image understanding tasks as well as 3D modeling techniques). The planned facility will foster the continued development of a nascent image processing and understanding research group at the University of Notre Dame, and the research topics to be supported were carefully examined to validate their ability to take advantage of the proposed equipment acquisition.